CAREER: Safety by Design: Protecting Adolescents from Online Risks

This project will investigate the mechanisms by which a critical gap in adolescent online safety technologies can be closed by leveraging interaction design as a means to minimize online risks, and thus to optimize the benefits internet-enabled technologies provide to youth. To do this, the work will: (1) develop novel insights as to how teens experience online risks, (2) identify the mechanisms by which teens seek support to cope with these experiences, (3) translate these insights into reusable design patterns for sociotechnical interventions for online safety, (4) work directly with teens to co-design solutions that promote self-regulation and leverage their support networks, (5) instantiate these designs into high-fidelity prototypes and real-world applications, (6) evaluate whether these solutions are developmentally appropriate in helping adolescents manage online risks more effectively, and (7) disseminate these evidence-based sociotechnical interventions for protecting adolescents from online risks to designers and developers of online platforms that cater to teens. This work serves to protect particularly vulnerable youth populations that are at highest risk of severe harm because they lack active online parental mediation.

The research integrates adolescent developmental psychology with interaction design and computer science to create new knowledge, theoretical frameworks, reusable design patterns, and technologies. It uses a social ecological framework of adolescent resilience to design technologies that help teens self-regulate and leverage their existing support networks in a way that teaches them how to manage online risks more effectively. By doing so, this project makes fundamental contributions to the adolescent online safety literature by: (1) closing the sociotechnical gap between the unique developmental needs of adolescents and the systems designed to keep teens safe from online risks, and (2) building on the risk and protective factors that have been identified in the literature to design effective and novel sociotechnical interventions to more effectively protect teens from online risks. Further, this novel "Safety by Design" approach will empirically contribute to a body of useful knowledge that improves the lives of young people by designing, developing, evaluating, and disseminating evidence-based sociotechnical interventions for adolescent online safety that can be easily translated to practice. This research seeks to achieve a significant paradigm shift towards building more teen-centric sociotechnical solutions that empower teens by treating them as key stakeholders and agents of their own online safety. The work examines, designs, develops, and evaluates innovative sociotechnical design interventions that empower teens to self-regulate their online risk experiences with the help of their support networks.